Cliometrics Conferences in 2012, 2014 and World Congress in 2013

This award provides partial support for three conferences in economic history: the 2012 and 2014 Cliometrics Conference and the 2013 World Congress of the Cliometric Society. The research topics bring together economics with statistics, demography, political science, sociology, anthropology, and archaeology. The goal is to use scientific methods to analyse historic data sources.

Papers presented at the conference are chosen in response to an open call for submission. Particular attention in selection goes to graduate students and new scholars. The steady mixing of newly trained and experienced researchers creates a unique intellectual environment that has worked to increase participation in this field of economics. The result is that young scholars receive the stimulation and encouragement to build strong scientific records in this interdisciplinary field.